Symposium -The 2007 Annual of the Society of Integrative and Comparative Biology (SICB) January 3-7, 2007 in Phoenix, AZ

During the past 40 years great progress have been made in understanding the functional
basis of anatomical diversity of organisms. More recently, researchers have begun to
unravel the genetic and developmental basis of anatomical structures. To understand
evolutionary transformations, one needs to analyze changes at genetic, developmental, and
phenotypic levels, as well as the integration between these levels. This requires the
construction of genetic, developmental and functional/selectional scenarios. Current
interest focuses on genetic and functional/selectional scenarios. Developmental scenarios
that convincingly link genetic and functional/selectional scenarios are scarce, but see
Beldade et al. 2002 for an example). It is essential to include knowledge of developmental
processes for a continued integration of developmental genetics and morphology. Most
morphological structures develop under the influence of many genes. Therefore, to
comprehend the evolution of the development of these structures, an understanding is
needed of how the involved genes interact, directly or epigenetically, in steering
morphogenetic patterning. The symposium and accompanying contributed paper and poster
sessions will provide a strong stimulus for integrative studies that link developmental
biology, genetics and functional morphology.
Intellectual Merits: There is a wide gap between what is known about the activity of genes
and their role in morphogenesis. Therefore, we perceive an urgent need to facilitate
communication among geneticists, developmental biologists and morphologists. The symposium
and associated activities (contributed paper and poster sessions) will provide important
opportunities for scientists with these two approaches to learn how their different
perspectives and methodologies can be used to broaden interpretations and generate more
robust and testable hypotheses that will shed light on the evolution of vertebrate
structure.
Broader Impacts: The symposium and associated activities (contributed paper and poster
sessions) will be held at the annual meeting of the Society for Integrative and
Comparative Biology, a well-established international meeting that attracts a broad
spectrum of biologists who are interested in interdisciplinary approaches. Symposium
papers will be published in Integrative and Comparative Biology.